Acquisition of Equipment for a Laboratory for Micromachined Fluidic Sensors and Actuators

Abstract- Glezer CTS- 9724471 Micromachining facilities and diagnostic equipment are consolidated and expanded into an integrated facility for development and testing of robust fluidic sensors and activators. Equipment acquired includes a large-area alignment system, a parylene deposition system, a hot vacuum press, a precision machining apparatus, a laser vibrometer, a particle image velocimetry system, and microscope/video systems. Initial application will be in research on thermal management, modification of aerodynamic surfaces, thrust vectoring, hybrid activators, real-time viscosity measurement, and mixing in combustion.